Mathematical Sciences: Mathematical and Experimental Studies of Blood Flow in Collapsible Carotid Arteries with Stenoses

Arteries with high grade stenoses may collapse under physiological conditions. The collapse may lead to accelerated fatigue and rupture of the fibrous cap of the plaque into the bloodstream with subsequent blockage of small arteries downstream. That can lead directly to heart attacks and strokes. The investigator and his colleague use mathematical, computational and experimental methods to study this collapsing process. Mathematical models have been limited primarily to one-dimensional models because of the difficulty in handling the collapsing tube, whose shape is unknown and changing. A three-dimensional nonlinear viscous mathematical model with free moving boundaries is introduced and a novel numerical method is developed to solve the model. The numerical method uses solutions of the longwave asymptotic expansions as the numerical initial condition and a boundary-iterative method to find the unknown moving boundary and the flow velocity and pressure. Experiments are performed to define the pressure-area relationship (tube law) for the elastic tube models and to quantify the exact pressure-flow conditions for tube collapse in a laboratory set-up. The laboratory experiments and in vivo measurements provide data for the formulation and verification of the mathematical model. The validated model together with its numerical solutions form a basis for further investigations of the collapsing process. Results obtained will be useful for early detection and prevention of stenoses, identifying the causes of rupture of plaque caps, and quantifying physiological conditions under which collapse may occur. While physiological dimensions of the carotid arteries and related parameter ranges are used in the computations and experiments, the methods developed in this project will be useful in a broad range of applications where free moving boundaries are involved. Plaque collecting in an artery can narrow it; this narrowing is called a stenosis. Just like wat er flowing in a narrowed channel, the blood will flow faster past a stenosis. In certain conditions, this can cause the artery to collapse. Then the plaque may break up in the bloodstream and subsequently block small arteries downstream. That can lead directly to heart attacks and strokes. The investigators study this collapsing process, using mathematical, computational and experimental methods. Previous models have been limited primarily to one-dimensional models because of the difficulty in handling the collapsing tube, whose shape is unknown and changing. This project develops a three-dimensional mathematical model that accounts for the blood flow and the change in shape of the collapsing artery, and a novel numerical method to solve the model. One of the investigators conducts experiments to determine the pressure-area relationship (tube law) for the elastic tube models and the exact pressure-flow conditions for tube collapse in a laboratory set-up. The laboratory experiments and in vivo measurements provide data for the formulation and verification of the mathematical model. Results obtained will be useful for early detection and prevention of stenoses, identifying the causes of pupture of plaque caps, and physiological conditions under which collapse may occur. The numerical methods developed in this project will be useful in other applications where free moving boundaries are involved.